NSF Young Investigator: New Ultrasound Phased-Array Systems for Imaging and Therapy

WPC 2 B J Z Courier #| x x 6 X @ K X @ QMS JetScript QMSJETSC.PRS x @ h h h h }X @ urier 10cpi 2 4 : J | x Courier Times Roman k x 6 X @ 8 ; X @ 05-27-93 02:26p Cassandra Queen 2 f X c b F Z " X ^ ? S f } } S S S } ? S ? F } } } } } } } } } } F F o S a S F S u } S o } o } o S } } F F } F } } } } S a F } } } } o x 2 x S ? S S * S S S S S S S S S S } F o o o o o o o o o o S F S F S F S F } } } } } } } } } } o } } } } } } o o o o o o o } o o o o } } } } } } } } S F S F S F S F a } F F F F F } } } } } } S S S a a a a F F F } } } } } } } o o o } F } S a F } } } } } N X ? q } S o } } } } } E N } K } K - o o } S S } } S o K F * R R d E | > g n | g | n | S R } { n n n R R n n n n n n n R R R R R R R R R R R R S S T ? x x x x 6 X @ K X @ D S ? \ P C P 7 o C 2 o \ P C X P A :8D u + >E t G u O Q3 N !Y O ! r E u 7 K >E u < " m ^2CRdd CCCdq2C28dddddddddd88qqqY zo CN z o oz zC8C^dCYdYdYCdd88d8 ddddCN8dd ddY`(`l C2CC !CCC CCCCCC Cd8 Y Y Y Y Y YzYzYzYzYC8C8C8C8 d d d d d d d d d d Y d d d d dod Y Y Y Y Y Y Y dzYzYzYzY d d d d d d d dC8C8C8C8 N dz8z8z8z8z8 d d d d d d C C CoNoNoNoNz8z8z8 d d d d d d dzYzYzY dz8 d CoNz8 d d d d dNF 2 dCYdddd d7> d< d < $ YYd CC dd oo CY < qqnn 8! q BBnnn q yy P q7 c1R yy X yy c n n n ~ n yRzczXzc y hCB n n d h c n nonvy XzX s h n ~XyBBnss ~ |y ~~~~~~~~~~~~~~~~~~~XXXXXXXyyyyyyyyyyyyyyyyyyyyBBBBBBBBBBBBnnnnnnnssssssssssss z C C n 2 3 ' 3 ' Standard 3 ' 3 ' Standard QMSJETSC.PRS x X ` h p x (# % '0* , .81 3 5@8 : <H? A 4 < D L ! 3 ' 3 ' Standard QMSJETSC.PRS x 3 ' 3 ' Standard QMSJETSC.PRS x 3 ' 3 ' Standard QMSJETSC.PRS x 3 ' 3 ' Standard QMSJETSC.PRS x 3 ' 3 ' Standard QMSJETSC.PRS x 3 ' 3 ' Standard QMSJETSC.PRS x 4 < D L ! ` h # \ P C P# 9358301 Ebbini Development of high intensity focused ultrasound (HIFU) systems for noninvasisve surgery and tissue ablation. A combined therapy /imaging system is being developed where the imaging system provides noninvasive feedback for monitoring and guiding the therapeutic beam. Our approach is to use RF diagnostic pulse echo ultrasound data to localize and track the lesion formation process, including noninvasive estimation of temperature at the focus site. We have collected extensive experimental evidence (both in vitro and in vivo) that validates our approach. Investigation of new algorithms for high resolution acoustic imaging with nonconventional large aperture arrays. A new formulation of the imaging equation for ultrasound propagation allows for the implementation of the imaging operator as a set of transversal filters. This approach utilizes coded excit ation, which allows for the simultaneous acquisition of a large number of image lines, thus making feasible the real time 3D imaging with ultrasound . Furthermore, it does not require Nyquist sampling of the array aperture thus avoiding significant practical problems associated with arrays containing large numbers of subwavelength elements. Unlike conventional pulse echo systems, the complexity of the system ( 0*0*0* envisioned based on the new approach will be in the design of high throughput transversal filters for real time implementation. This problem can be solved using existing VLSI signal processing technology. X # x \ P C X P# ***